Analysis of Microtubule Dynamics

Microtubules are intracellular polymers that participate in a variety of events in eukaryotic cells, including mitosis, intracellular particle transport and the maintenance of asymmetric cell shape. Microtubules are inherently dynamic, and are observed to alternate between periods of growth and rapid shortening. The transition from growth to rapid shortening is termed catastrophe; the reverse transition, rescue. To directly observe the dynamic behavior of microtubules in living cells, a fluorescent analog of tubulin, the subunit protein of the microtubule, will be injected into cells and allowed to incorporate into the microtubule polymer. The fluorescent microtubules will be detected using low-light-level fluorescence microscopy. The rates of microtubule growth and shortening and the frequencies of transitions between these two states will be quantified from video records of the living cells. The dynamic behavior of microtubules will be determined as cells progress through the cell cycle. Previously characterized molecules which bind microtubules will be injected into living cells and the resulting behavior of the microtubules measured. The parameters of microtubule dynamics in epithelial cells will be determined and factors which promote microtubule rescue events will be isolated from these cells. A wound model will be used to induce the reorientation and motility of fibroblasts. Under these conditions, a new lamella is extended; the formation of stable, paused microtubules and the contribution of microtubules to the formation of focal contacts in the newly formed lamella will be measured. The results of these experiments will provide new information concerning the mechanisms that cells utilize to modify and regulate the dynamic behavior of microtubules during these various events. Finally, using cell fractionation and functional assays for microtubule behavior, the regulatory factors which modulate microtubule behavior will be characterized. %%% Microtubules are ubiquitous in the eukaryotic world and fundamental to life as we know it. They are scaffolding for cell shape, road maps for intracellular motility, and determinants of post-cleavage cell fate; they form the mitotic spindle apparatus which is responsible for chromosome segregation to daughter cells, and they are the stuff of cilia and flagella, responsible for cellular locomotion. Microtubules are polymeric cytoskeletal structures made up of the protein tubulin. In most situations, the polymers are dynamic, that is, they are continuously undergoing polymerization and depolymerization. Understanding their dynamic behavior and the molecular basis for this dynamism are important goals for understanding microtubule functions in nature, as well as for harnessing microtubules either directly or indirectly for nonbiological practical applications e.g., molecular switches).